Neural Prostheses: Motor Systems IV Conference; Columbus, Ohio; July 23-28, 1994

9319988 Peckham This proposal from Case Western Reserve University requests partial support to conduct a symposium entitled Neural Prostheses: Motor Systems IV Conference. The symposium focuses on integration of engineering and clinical expertise in developing devices that restore function for individuals with motor impairments; to expedite the transference of neural prostheses from the engineering laboratory to the clinic and manufacturing industry; and to educate young researchers. The international scientific meeting is the fourth in a series of conferences held every three years. Sessions to be held include neural prostheses for lower extremity, upper extremity, bladder, and respiratory; electrodes, leads, and connectors; muscle and muscle properties; feedback control strategies; command control; and technology transfer. Presenter participants in the symposium are world leaders in neural prostheses for motor control. Funding requested from the NSF would provide partial support for invited participants. Four papers will be submitted for peer reviewed journal publication by symposium participants, thereby making symposium results available to a large audience. ***